Statistical Inference for Complex Data

The advent of computers is routinely bringing large,
very large datasets for analysis. How to analyze the
attendant data and/or how to glean useful information
from these data is anything but routine. This proposal
investigates two broad areas, viz., mixture decomposition,
and regression in the presence of taxonomy and hierarchical
variables. The mixture decomposition work is concerned with
data in which the observation is a distribution function
in the p-dimensional Cartesian product of distributions space,
rather than the single point in p-dimensional space of
classical data. Such data arise naturally, or after a
ggregation of original data to a more manageable size
yet retaining its inherent information. A goal is to
partition these distributions into coherent classes
and to estimate the relevant class distributions.
It is proposed to adapt ideas from copula theory for
classical data, to data comprised of distributions.
Embedded in this process is the need to study parameter
estimation. Different partitioning techniques will be
explored such as dynamical clustering, different measures
of fit criterion will be considered, e.g., log-likelihood
classification; and different estimation methods explored
for the underlying copulas and the associated distributions
and their parameters, e.g., maximum likelihood, nonparametric
methods such as Parzen's truncated window. The resulting
methodology will have wide applicability to those datasets
generated in, e.g., meteorology, environmental science,
social sciences, health-care programs, and the like.
Regression methods when taxonomy variables, and when
hierarchical variables, are present will also be developed.
This will first be executed for classical data, and then
extended to interval-valued data and to histogram-
(or frequency-) valued data.

With modern computers generating very large datasets, it is imperative
that techniques be developed for analysing such datasets. To date very
few methods exist. The research will develop new methodologies for
analysing these data. A first step is to aggregate the data in some
well-defined but meaningful way. This aggregation will thence produce
data in the form of lists, intervals, or distributions, and these data
will now have some form of internal structure. The research will focus
on such data of two types. One will be where the data now consist of
distributions, and where the goal is to develop methods to identify the
appropraite mixture of distributions that describe these data. Another
deals with taxonomy and hierarical data, with the goal of establishing
regression relationships that will explain the underlying process
governing the variables involved. The resulting methodologies will
allow analysis and interpretation of contemporary datastes where
currently no methods exist.